Culturally Responsive Indigenous Science: Connecting Land, Language, and Culture

The intersection between Indigenous and Western science continues to be of great importance to K-12 science education, particularly with regards to broadening participation in STEM. With over five hundred federally recognized Native American tribes in the United States, there is much to learn and understand. This Culturally Responsive Indigenous Science project seeks to advance this knowledge base through research and by catalyzing new approaches to Indigenous science, technology, engineering, and mathematics (ISTEM) learning. Using an ISTEM focused model, the project will develop, test, and implement a culturally responsive land-based curriculum that integrates Western science, multimodal technologies and digital tools, and Native American tribal knowledge, cultures and languages to investigate and address local environmental science and sustainability concerns. While Indigenous STEM teaching and learning as constructs have existed for many years, the rigorous research design and extensive integration of multimodal technologies as platforms for scientific inquiry, data management, knowledge dissemination and curation are innovative and timely. Few, if any, Design and Development projects in the current DRK-12 portfolio explore similar work. Therefore, the broader impacts of this project are poised to not only contribute to the DRK-12 portfolio but also advance knowledge in Indigenous STEM education and science education, more broadly.

Over a three year period, hundreds of Native American students (grades 4-9) in tribal schools located in Oregon, Washington, and Idaho will engage in the project. Each year, approximately 60-80 students (grades 7-9), with some returning students, will also participate in enrichment activities and in years 1-3, in the residential summer experience at Washington State University. A qualitative, quasi-experimental design-based study will be conducted to address three salient research questions: (a) What are the impacts of culturally responsive and land education-based ISTEM curriculum and technology on Native American student engagement, efficacy and achievement in school? (b) What types of professional development activities foster teacher efficacy and improve teacher learning and teaching of ISTEM in classrooms? and (c) How can ISTEM foster greater family and community engagement in schools and in Tribal Communities? Data will be collected through interviews, surveys, and or questionnaires from participating students, teachers, and Tribal members. Consistent with Indigenous methodologies, focus group interviews (talking circles) will also be facilitated after ISTEM community expositions and engagement activities to capture community impacts. Formative and summative evaluations will be conducted by the Learning and Performance Research Center (LPRC) at Washington State University, an independent entity of the University with extensive expertise in project evaluation. A broad range of dissemination activities will be employed to achieve maximum impacts, including the use of the Plateau People's Web Portal, a digital tool designed to help Native communities to manage, circulate, and curate their digital materials using their own cultural protocols, language and social systems. This regional collaboration includes partnerships with the Confederated Tribes of Warm Springs (Oregon), Confederated Tribes of the Colville Reservation (Washington), and the Coeur D'Alene Tribe (Idaho).

The project is supported by the Discovery Research K-12 program (DRK-12), which seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.